Visualizing Large Data Sets

Computer simulations are now an important means of understanding many
complex physical phenomena. Numerical simulations are now vital in
structural analysis, fluid dynamics, chemistry, and biomechanics for both
research and commercial purposes. Unfortunately, although parallel
algorithms and supercomputer systems can now handle the raw computations,
visualization and data processing tools have failed to keep up with these
advances. As a result, computers can generate a staggering amount of data
- hundreds or thousands of gigabytes in time-dependent analysis - that must
still be translated to a form that humans can effectively understand.
Without this translation, the value of simulation and analysis is sharply
reduced. This project will study new visualization methods and
architectures needed to effectively apply numerical simulation tools.

This project describes a data-flow architecture that can manage large data
sets using computers ranging from small single-processor CPU's to high-end
supercomputers. The architecture minimizes disk access, maximizes use of
available memory, and lends itself to parallel algorithms. The approach is
to stream coherent blocks of data between processes, and minimizing system
overhead through careful use of configurable data caches and parsimonious
data filters. This extends previous work by the investigators in an image
processing toolkit to handle more complex dataset types objects such as
unstructured grids. The investigators will build their software as a
toolkit of interoperable objects, and will make the software freely
available to other researchers.